Dispersion in Spacio-Temporally Heterogeneous Environments

Mischaikow
0107396
The goal of this project is to better understand the
relationship between dispersal rates and the spatio-temporal
heterogeneity of environments. In particular, the investigator
would like to understand if there are any fundamental
relationships upon which a framework for this theory can be
developed. Therefore, to minimize extraneous effects the
investigator continues to study what is perhaps the simplest
continuous model that explicitly incorporates a spatial variable:
a system of reaction diffusion equations with Lotka-Volterra
reaction terms, where the reaction term of each species is
identical, and where the birth rate is spatially and temporally
heterogeneous. This model allows for a variety of perturbations
through which one can study the impact of various factors in the
evolution of dispersal rates. Of course, this model has several
limitations. The first is the assumption that leads to the
dispersal being represented as simple diffusion. The investigator
wishes to understand the effects of taxis on the relationship
between dispersal rates and spatial heterogeneity. On a more
general level the investigator intends to replace diffusion by an
integral kernel.
That ecology and evolution are fundamentally influenced by
the spatial characteristics of the environment is well accepted.
As an example of this one may consider the paradox of diversity.
Simple mathematical models that do not include any spatial
component give rise to the principle of competitive exclusion:
when two species compete for the same limited resource one of the
species usually becomes extinct. On the other hand it is commonly
observed that in a wide variety of habitats a multitude of
species coexist. This can be explained, at least in part, by
including spatial effects. Of course, once spatial components are
introduced, dispersal rates become a central feature.
Unfortunately, our understanding of cause and effect in this more
general situation is poor. The reasons for this appears to be
fourfold. First, the number of variables in realistic ecological
and environmental models is enormous. Second, spatial
heterogeneities occur at all scales of the environment. Third,
obtaining precise data for these variables from field studies is
extremely difficult. Finally, current mathematical techniques for
handling models that incorporate both spatial and dynamical
properties seem to be inadequate. Given this state of affairs, a
simple model is thoroughly investigated in the hopes of
elucidating the basic biological principles and identifying the
fundamental mathematical issues.